SGER: Development of Photocurable Degradable Polymers for Orthopedic Applications

9619331 Anseth The object of the proposed research is to develop a new class of degradable polymers that is photopolymerizable and exhibits the desired mechanical properties (particularly as the sample degrades) necessary for musculoskeletal applications. This work is important in developing new strategies to restore structural and mechanical function to bone that has been fractured by traumatic injury, or surgically removed because of disease or tumor formation. There is a great need for polymeric materials that are safe, degradable and strong for use in musculoskeletal applications. Development of a photopolymerizable system may be beneficial for many reasons including fast curing rates at room temperature, spatial control of the polymerization, and complete ease of fashioning and flexibility during implantation. These benefits have led to advanced in dentistry, opthamology, and adhesion prevention, but currently no orthopedic systems have been designed. Photoinitiation could greatly simplify the clinical application of orthopedic polymer implants. For example, in pin applications a viscous, liquid monomer could be introduced into a pin hole and the system photopolymerized in situ to render a hardened polymer of the required dimensions. In situ polymerization eliminates the need for shaping the implant with blades, buffs, and warming instruments. Additionally, the process provided a faster and better mechanism for replicating complex shapes and should improve adhesion of the polymer implant to the bone. Bone fractures are a major health concern in this country. Recent studies of musculoskeletal conditions in the United States estimate over 2 million fractures annually which more than 280,000 are hip fractures. Numerous musculoskeletal applications would benefit from the development of safe, strong, easily fashioned, and degradable polymers. ***